Southeast Asian Reef Corals: A Proxy Record for the Indonesian Low Pressure Call and the Southern Oscillation

The purpose of this study is to document the variability of the Indonesian Low Pressure System using oxygen isotope anomalies recorded in annually-banded reef corals. As the position of the Indonesian Low is an index of the Southern Oscillation, these data will also serve as a proxy record of the Southern Oscillation. Over 80 m of coral core have been recovered from sites in Thailand and Eastern Indonesia. Isotopic analysis of this core library can provide a picture of sea surface temperature and precipitation variability across S.E. Asia for the past 200 years, with some records extending to 300 years or more. This study will produce proxy-precipitation time series that will record shifts of the Indonesian Low and changes in phase of the Southern Oscillation. These time series will be analyzed for event sequences, lead/lag relationships and long-term changes in spectral characteristics.